Planning for 2002 NSF EPSCoR National Conference - Anchorage, Alaska, September 8-10, 2002

The 2002 NSF EPSCoR National Conference will focus on new research opportunities and future developments in information technology, strategies for promoting research and development partnerships, methods for increasing participation in research and education, and best practices in multi-state collaborations and cross-agency initiatives. The conference will be held in Anchorage, Alaska, in September 2002. Representatives from academe, state and national government, and private industry will participate. The Alaska EPSCoR program staff will organize and manage the conference.